Geometric realizations of local Langlands correspondences

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

The PI proposes to investigate representations of p-adic reductive groups (mainly general
linear groups) and Galois groups which are (simultaneously) realized by the cohomology
of deformation spaces of p-divisible groups. The proposed research naturally falls into two
projects, according to the type of cohomology theory that is considered. The rst project
is concerned with the de Rham cohomology of the p-adic symmetric spaces dened by
Drinfeld. These can be considered as the special bers of formal schemes, and these formal
schemes represent deformation functors for certain p-divisible formal groups (with extra
structures). It was shown by P. Schneider and U. Stuhler that the (compactly supported)
de Rham cohomology groups of these spaces realize generalized Steinberg representations
(of general linear groups). Torsion points on the universal formal group give rise to etale
coverings of the symmetric spaces, and global arguments (relying on the use of Shimura
varieties) show that their cohomology groups realize supercuspidal representations. Be-
cause these spaces are Stein spaces, their cohomology groups can be computed by means
of rigid-analytic dierential forms. Using the relation to dierential forms, the project
aims at constructing lattices in these supercuspidal representations which then give rise
to Banach space representations. Furthermore, the PI seeks to relate these Banach space
representations to certain families of potentially crystalline Galois representations, at least
when the spaces are one-dimensional (in which case the Galois representations are of di-
mension two), and when the covering is 'tame'. The second project is concerned with the
etale l-adic cohomology of deformation spaces of one-dimensional formal groups. These
cohomology groups are known to realize the local Langlands correspondence between n-
dimensional Weil group representations and representations of the p-adic GL(n). Again,
the only known proofs for this fact, due to M. Harris and R. Taylor (respectively P. Boyer
in the equal characteristic case) depend on global arguments. The PI proposes to investi-
gate the equality between epsilon constants of representations which correspond to each
other, in the case when the base eld is of positive characteristic, by using local methods
from rigid-analytic geometry. For the Galois representation a formula due to G. Laumon
describes the epsilon constant in terms of a local Fourier transform, and this Fourier
transform in turn has a rigid-analytic description. Analyzing this description the PI seeks
to relate Laumon's formula to a formula of Bushnell and Frohlich for the corresponding
representation of GL(n).

The proposal is about investigating solutions of algebraic equations with special emphasis
on methods involving congruences with respect to a xed prime number p. For instance,
even though a polynomial in general may have no roots which are rational numbers, there
may well be integers which are roots up to multiples of (arbitrary) high powers of p. This
can be considered as an approximate solution with respect to p, and these approximate
solutions give rise to a solution which is no longer an ordinary number, but a so-called p-
adic number. The arithmetic of p-adic numbers is considerably easier than the arithmetic
of rational numbers, yet complex enough to reveal lots of information about algebraic
equations (with rational coefficients). Moreover, it is possible to do analysis with p-adic
numbers. The local Langlands correspondence describes the arithmetic of p-adic numbers
in terms of actions of certain groups of matrices on linear spaces. These linear spaces are
derived from non-linear or 'curved' spaces by 'taking homology', which is a process of
converting geometric information into linear spaces. The curved spaces in turn, which
are like surfaces in spaces of p-adic numbers, are accessible to analytic methods, with
functions depending on p-adic numbers as arguments. The PI proposes to use these
available analytic methods to investigate the curved spaces (and subsequently the linear
spaces they give rise to) with the goal of getting a better understanding of the local
Langlands correspondence and extending it beyond its classical domain.